Modelling of Graphs, Networks and Trees for Genomic Applications: High-Dimensional Model Search

This research concerns the development of theory, methods and computational
tools for statistical modelling motivated by applications in functional
genomics. The over-arching theme is that of "High-Dimensional Model Search,"
i.e. the development of tools and methods for generating, evaluating and
interpreting sets of relevant candidate models of a biological problem
involving many variables. Research includes the investigation of models and
computational methods for very large-scale graphical models, especially
Gaussian graphical models and very sparse model structures, as
representatives of the structure and patterns of association between
biological variables from observed and experimental data. Contexts of gene
and protein expression studies generate multiple motivating problems and
data for case studies. In problems of realistic dimension (thousands) any
one such graphical model is high-dimensional in both the variable domain
(number of nodes) and numbers of parameters; but, the fundamental challenge
is that the number of candidate models for a given problem is astronomical.
In fitting and evaluating candidate models, it is typical that many
candidates have plausible support based on fit to the available
observational or experimental data and in the context of relevant biological
information. Hence the need for methods to identify, explore and evaluate
many plausible models, and to interpret and characterize their similarities
and differences in both statistical and substantive biological terms.
Additional classes of regression models, including nonlinear statistical
classification and prediction tree models, represent flexible frameworks for
the exploration, combination and utilization of multiple forms of biological
data in predictive phenotyping for prognosis, diagnosis and discovery. In
genomic contexts, high-throughput molecular information such as gene
expression data leads to very, very many potential predictor variables to be
assessed, so that, again, the challenges to statistics include dealing with
and exploring spaces of very high-dimensional models. These central research
challenges -- variable selection and model uncertainty that, with large
numbers of variables, are simply unanswerable based on current mathematical
and statistical methods -- form the core focus of this project. Motivated by
and integrated with a number of genomic studies that provide data,
collaborators and application contexts in functional genomics in several
areas of application, this project involves model development and innovation
in methods of stochastic search over complex and very high-dimensional
statistical model spaces. This includes associated model theory, methods,
and computational algorithm development that involve distributed cluster-
based implementations, as well as feedback application in a number of
biomedical studies.

Modern biomedicine now has access to data of rapidly escalating scales and
complexities based on innovations and advances in, in particular, genome
technologies. This includes high-throughput genomic data from DNA microarray
gene expression studies in both laboratory and human observational disease
and exposure studies, related large-scale molecular information from
proteomic and metabolic profiling technologies, genetic and sequence
information that is quickly expanding towards genome-scale sequence data,
and, of course, traditional forms of clinical, environmental and demographic
data. Advances in both basic biology and the use of such information to
inform and aid in human health studies requires very substantial
advances in the capacity to analyse and interpret these data sets of ever-
increasing scale and complexity. Bringing multiple forms of such data to bear
in defining predictive phenotypes is at the core of the emergent arena of
clinico-genomics, for example. The challenges to modern mathematical and
computational modellers are those of very high-dimensional mathematical
model specification and analysis, coupled with the need for computational
tools to search across astronomical numbers of candidate models, an endeavor
that is well beyond the current capacity to implement, evaluate and
understand. This challenge defines the core agenda of this research project:
the development of statistical and computational tools for very high-
dimensional statistical models. The research is coupled with an integrated
collection of genomic studies that provide data, biological collaborators
and applications in functional genomics in several areas of cancer and
cardiovascular biology, pathway studies in cell cycle regulation and
oncogenesis, cancer proteomics, transcription regulation and other areas. At
the core of the research lies innovation in methods of stochastic search --
i.e., simulation techniques -- over complex and very high-dimensional
statistical model spaces, and the associated model theory and methods. The
inherent intellectual merit of the research lies in the advances and
innovative new methods in computation and statistical modelling, as well as
specific biological applications. The broader impact of the research lies in
the applicability of the resulting methods and tools to applications in these
specific areas, in other related biomedical/genomic applications, and in
other fields of science.